CRI: Developing the Lemur Toolkit into a Community Resource

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: Developing the Lemur Toolkit into a Community Resource
Proposal: CNS 0454018
PI: Jamie Callan
Institution: Carnegie-Mellon University

The PI will build on the Lemur Information Retrieval Toolkit, a researcher oriented toolkit developed at the University of Massachusetts and Carnegie Mellon (See http://www.lemurproject.org/) to create a new community resource that a broad range of computer scientists can use. Uses of the resource include information retrieval research and education activities such as search engines, text retrieval, indexing, and user interfaces. The project will add capabilities need by human language technology researchers. It will address usability, resource needs, and documentation. Compute science education will be fostered by creating tools that can be used in classes. A large-scale server with Internet access via client-server programs will support a wide range of institutions. This will be an open-source project enabling a wide community to engage in improvements and use.